NYI: Coding For The Gaussian Multiple-Access Channel

9357689 Rimoldi NYI: Information Processing Problems in Wireless Communication Networks We are approaching an era of personal communication that requires an infrastructure capable of providing untethered access to a global network from any point on (and above) the surface of the earth. Implementation of this scenario in an already congested radio frequency spectrum requires renewed efforts to understand the design of more efficient information processing and network control in wireless communication networks. We will mainly concentrate our efforts on information processing problems. One such problem is how to ensure that a number of transmitters can send information packets to a common central station in an efficient way. Solutions that have been considered for implementation so far are suboptimal. Of particular interest from both a theoretical and a practical point of view is the use of codes based on lattice structures. These structures can be used to design multiple-access codes that approach channel capacity and are well suited for being used with bursty sources with a decoder of manageable complexity. Also of interest is the use of lattice structures to achieve successively refined quantization of analog sources.